Academic Research Infrastructure: Acquisition of a High- Performance Parallel Computer for Computer Science Modeling Research

9601518 Hayden, S. Porter Abernethy, C. Kenneth Furman University Academic Research Infrastructure: Acquisition of a High-Performance Parallel Computer for Computer Science Modeling Research This Academic Research Infrastructure award supports the acquisition of a four node, high performance computer. The projects supported by this equipment are the development of optimized parallel computational models of the dynamics and energetics of global scale atmospheric circulation and the development of formal methods and models for the specification and validation of software system requirements.